Collaborative Research: CAIG: Integrating Artificial Intelligence and Neotectonics for Data-Driven Global Active Fault Mapping

Earthquakes can cause major loss of life, damage infrastructure, and disrupt communities, yet many active faults around the world remain poorly mapped or not mapped at all. This project addresses the need for better, more consistent ways to identify and understand active fault systems. The project will develop artificial intelligence tools that help researchers map faults more accurately by combining information from a variety of sources. The work will support improved understanding of earthquake hazards. It will also create training opportunities for students at the intersection of computing and Earth science.

This project will develop an artificial intelligence framework for mapping and interpreting active fault networks and characterizing the dynamics of those fault systems across tectonically variable regions. The research will integrate geophysical and geological constraints within physically informed learning models to infer fault properties. The project will integrate interpretable learning approaches to move beyond simple feature detection toward uncertainty-aware and physically meaningful fault-system mapping. The resulting workflows will be benchmarked against well-characterized fault systems. Reproducible tools and datasets will be released for broader community use.